Deformation Spaces of Hyperbolic 3-manifolds

DMS-0204763
Kenneth Bromberg

The investigator plans to study spaces of hyperbolic metrics on a fixed
3-manifold. Unlike on a closed manifold, on an open 3-manifold there will
typically be a large space of hyperbolic metrics. The investigators
goal is to understand this space. Some questions are simple to state:
Is the deformation space the closure of its interior? A more detailed
description of the space is the ending lamination conjecture,
which gives invariants that classify every hyperbolic metric on
the manifold. This classification is not a parameterization; the map to
the space of invariants is not continuous. The investigator is
interested in understanding these discontinuities and describing the
topology of the deformation space of metrics. Hyperbolic cone-metrics
are a key tool used throughout this work. The philosophy is that very
complicated geometry in a smooth hyperbolic structure can be exchanged
for a less complicated, but singular, hyperbolic cone metric.

Three manifolds are mathematical spaces that locally look like the
universe we live in. Mathematicians, beginning with Poincare, have been
interested in classification question about three manifolds. Hyperbolic
geometry is also a very old field dating back to the middle of the
eighteenth century. In the last twenty-five years, largely due to the work
Thurston, it has been realized that there are deep and beautiful
connections between the two topics.